A Workshop on Teaching Fluid Mechanics with Workstation Based Software

A workshop will be held at MIT during the summer of l988 to introduce faculty from other institutions to the possibilities of enhancing the teaching of undergraduate fluid mechanics with workstation based software. Twenty participants will be introduced to this new media using software developed over the past four years at MIT. The participants will be encouraged to think of new uses and new approaches for the software, asked to develop problem sets, and required to critique the workshop. The activity will expand to a national level a collaboration of teachers which has started at MIT. In addition to the NSF award, participants' institutions will contribute about 15% in travel funds toward the cost of the project.